Summer Enrichment in Molecular Biology and Recombinant DNA Technology

Miami University, Oxford Campus will implement a summer enrichment program in molecular biology and recombinant DNA technology for high school students as Young Scholars. Twelve students who have completed their junior year will be selected from the high schools of Ohio, Indiana, and Kentucky. Young Scholars will spend 6 weeks during the summer of 1987-88 and 1988-89 in residence at Miami University. Students will attend formal lecture presentations and research seminars in the morning, Monday through Friday, and perform research experiments in molecular biology research projects in the laboratories of selected faculty research mentors from the Botany, Microbiology, and Zoology Departments in the afternoons. Additionally, Young Scholars will attend informal seminars on career opportunities in molecular biology, on the college admission process, and the scientific ethics, risk, and social responsibilities of recombinant DNA researchers. Miami's residence hall staff will arrange different social, cultural, and sports activities for the Young Scholars.